Thirty-Second Annual Meeting of the Wind River Conference onGenetic Exchange, Estes Park, Colorado, June 5-9, 1988

The 32nd annual meeting of the Wind River Conference on Genetic Exchange to be held at the Wind River Ranch, Estes Park, Colorado June 5-9, 1988, is primarily concerned with the biology and molecular biology of genetic exchange systems in a variety of prokaryotic and eukaryotic systems, and is the major meeting devoted to this subject area internationally. One significant feature of these meetings is their accessibility to graduate students and post-doctoral candidates, whose travel funds frequently are limited. Specifically to address this problem, funds will be used to provide travel and support scholarships to facilitate the attendance of graduate students and post-doctoral candidates working in various areas of genetic exchange and related subject areas.